Selection and Description Bias in Newspaper Coverage of Protest Amidst a Democrtic Transition: The Case of Minsk, Belarus

This is an award under the Small Grants for Exploratory Research (SGER). It is a study of newspaper coverage of public protest during a democratic transition in Belarus. Belarus has begun to allow public demonstrations of protest and the government now issues permits for peaceful demonstrations. The study has the quality of a natural experiment, in which the researchers will be able to obtain data both before and after the permitting system. The study will contribute to theories about the relation among protest, media coverage, and state activity and about the process of democratization. Analysis is based on a systematic review of police records and major newspapers from 1988 to 1995. %%% This research will contribute to a sociological understanding of the efforts to control violent conflict through government permits allowing peaceful demonstrations and of newspaper bias in how such demonstations are reported. An examination of these events in Belarus will demonstrate the conditions that contribute to the development of democratic institutions. In addition to the scientific gains from this research, it will develop scientific ties with researchers in Belarus.